Mechanical Engineering, Mathematics, Computer Engineering and Computer Science (EMC2) Scholars Program

The faculty team at Rochester Institute of Technology has created the EMC^2 Scholars Program represents a collaborative effort of four academic programs (Mechanical Engineering, Mathematics, Computer Engineering, and Computer Science) across three colleges, and the Enrollment Management and Career Services Division at the Rochester Institute of Technology (RIT). Their program builds upon their existing infrastructure for mentoring students, and involves their co-operative education program, both of which help students address their financial needs and facilitate placement in the high technology workforce.

Their scholarship program supports 62 scholars each year. RIT will provide an equal matching support to more than double the scholarship amount to students positively impacted by the EMC^2 program. RIT's 1.6-to-one matching support to this program indicates the university's enthusiasm, a firm commitment of support to their students, and an endorsement of the goals and objectives of the EMC^2 program.